New Copolymers Incorporating Well-Defined Conjugation Sequences for Potential Application in Light-Emitting Diodes (LEDs)

9361780 Ghosal Efficient, environmentally stable, easily processable and cost effective semiconducting materials are needed from fabrication of light emitting diodes to be used in large area displays and density optical recording. The proposed Phase I research utilizes copolymers to fabricate visible light emitters made of novel organic polymer composites. Constituents of the proposed composite material can be varied to achieve desired efficiency of light emission, low voltage of operation, required brightness, and other important operational parameters. the flexibility and ease of the proposed material's processing technique enables route to inexpensive, reconfigurable and high pixel density displays. The future benefits of the proposed structures are: (i) high quantum efficiency of the light emission, (ii) controllable chromaticity, (iii) low voltage of operation, and (iv) long time reliability. ***